The Geometric Background of biHamiltonian Systems

Abstract

Award: DMS-0804541
Principal Investigator: Gloria Mari-Beffa

In this project the PI proposes to research the existence of
geometric realizations for nonlinear biHamiltonian PDEs and the
implications of this existence for the biHamiltonian system and
for the realizing manifold alike. In particular she intends to
describe possible realizing manifolds and to link their geometry
to the type of system they realize. In the past the PI has
studied how biHamiltonian structures are generated by the
geometry of curves in realizing manifolds. She also studied
geometric realizations of equations of KdV type in Hermitian
Symmetric manifolds, linking the projective character of
differential invariants to equations of KdV-type. In this project
she proposes to deepen this relation and to expand it to
parabolic manifolds. In joint work with M. Eastwood she will be
using tools in classical differential geometry to find projective
structures on flows. Resolving this differential geometry problem
will very likely create geometric realizations of KdV-type in
parabolic manifolds. She will also investigate the possibility of
a similar connection in other geometries, for example that of
Schrödinger, mKdV and sine-Gordon flows to Riemannian
geometry. Finally, in joint work with Calini and Ivey, the PI
will study geometric and topological properties of solutions to
realizations of soliton equations, in particular those
corresponding to finite-gap solutions (periodic case). The study
will try to link properties of these solutions to their spectral
parameter.

Setting an appropriate geometric background is often a
fundamental step in the resolution of a problem. A choice of
geometry establishes the properties and laws we wish to keep
unchanged: Relativity (with Lorentzian geometry setting the
interaction between space and time) and computer imaging (using
projective geometry when 3D perspective needs to be preserved)
are some of the best-known examples. But nowadays many engineers
and physicists, including some groups working on data collection,
consider a basic knowledge of differential geometry to be
fundamental. Geometric thought is commonplace, as often finding
the right choice of geometry for a problem is an initial step in
its resolution - it all depends on how (or with which geometric
eyes) you look at it -. BiHamiltonian nonlinear equations are
very rich in structure and they are often used to model different
types of phenomena. Their rich structure allows us to find a
great deal of information about the system they model and to
predict behavior. The best-known completely integrable systems
are bi-Hamiltonian, and their solutions predict the behavior of
fluids, from water waves in shallow water to the trailing
vortices behind the wing tips of an airplane. These phenomena do
not, in principle, exist within any given geometric
background. When we find geometric realizations for a completely
integrable system we gain information in two different ways: 1)
We learn that the behavior of these phenomena can be visualized
within a certain geometry, and we learn how to visualize it. In
particular, the same phenomena can be described in more than one
geometry; 2) We learn that some geometries are hosts to phenomena
that were not known to exist in that context before. For example,
by linking projective and centro-equi-affine geometries, we can
find evolutions of star-shaped curves that behave like solitary
waves. The better we understand the relation between these two
apparently unrelated subjects, the more we can transfer our
extensive geometric knowledge, their connections and properties,
to the understanding of completely integrable systems. And
vice-versa.